Role of Intermediate Filaments in Particle Motion in Fish Melanophores

Boisy 9418474 The cytoplasm of cells is organized by means of a dynamic filamentous framework called the cytoskeleton. This framework may be likened to a rail network along which move many kinds of cellular "cargo." The "cargo" moves along the rail network after loading onto transport vehicles equivalent to "flatbeds" or "tanker cars" and these are moved along the rail network by engines of various kinds. The problem in understanding the organization of the cytoplasm is to figure out the molecular workings of this "rail network." The network in cells is composed of three kinds of filamentous "rails" actin filaments, microtubules, and intermediate filaments. Some of the motors and "cargo" for actin filaments and microtubules but the role of intermediate filaments remain a mystery. Special cells in the skin of fish provide a particularly favorably system in which to investigate the role of these intermediate filaments. These cells display spectacular cytoplasmic traffic; thousands of granules of pigment can be induced to move rapidly and synchronously either inwards towards the center of the cell or outwards toward the periphery in response to a hormonal stimulus. This system will be used to test whether intermediate filaments participate in the movement of granules. %%% This study is important because will address a fundamental mystery about he organization of the cytoplasm and the traffic which takes place within it. This study will be the first to investigate the potential role of intermediate filaments in the translocation and specific positioning of cellular components. Such process necessarily entail molecular motors and have the potential to affect numerous cellular functions including uptake and secretion of materials from cells, positioning of organelles and segregation of genetic material at the time of cell division. ***